18th Workshop on Languages and Compilers for Parallel Computing

This workshop covers aspects of languages, compiler techniques, run-time environments, and architectures for parallel and high-performance computing. Since 1988, the annual LCPC workshops have provided a forum for leading researchers and practitioners to present their latest work and to exchange ideas about future directions. The papers published in the proceedings of the workshop have been widely cited over the years and many of them have represented the first public presentation of innovative ideas. The participation is truly international with speakers from the US, Japan and Europe. While the workshop covers many topics, the emphasis has always been software, e.g., compilers, languages, run-time systems, performance evaluation for parallel systems. The proceesdings of this 18th LCPC Workshop are published by Springer-Verlag, thus making the discussions of this forum available to the broader community.